SBIR Phase II: Productization, Clinical Validation, and Quality & Regulatory Activities for In-Home Diabetic Foot Imaging Bathroom Scale System

The broader impact/commercial potential of this Small Business Innovation Research (SBIR) Phase II project is a novel at home scale to reduce severe diabetic foot ulcers in patients with diabetic neuropathy, often sufferring from lost or impaired sensation. Ulcers affect approximatey one-fourth of diabetic patients over their lifetime significantly impacting their mobility and life expectancy. Estimates for diabetic foot ulcer treatments are as high as $40B per year and up to one-third of all direct diabetic healthcare spending. Long term effects include amputation of one or more extremities; accounting for a majority of non-traumatic lower extremity amputations each year. The proposed solution provides a remote at home monitor providing daily visual inspections for early signs of foot ulcers significantly improving current qualitative and often variable- inspection methods representing the current standard of care for detection.

This Small Business Innovation Research (SBIR) Phase II project will develop a novel in-home health monitoring product for diabetic foot complications within constraints required for commercialization. The proposal builds on the company’s proprietary imaging and algorithmic method and prototype developed during the Phase I project with three concurrent objectives: (i) Advance the design, engineering and manufacturing activities to ruggedize the product suitable for patient use; (ii) Complete a clinical study with a partner health system to demonstrate patient use adherence and provider usability with the images and data suitable for clinical adoption; and (iii) Perform quality assurance testing of the manufacturable product at scale. The activities aim to complete a product suitable for commercialization for use at home as intended at cost, scale and quality.